Modeling Host-Parasite Systems

Feng
9974389
The investigators and her colleagues study and analyze the
complex interactions between parasitic trematodes and their
invertebrate and vertebrate hosts by developing mathematical
models that allow the prediction of changes in the population
dynamics of both hosts and parasites. Continuous deterministic
models based on systems of differential equations are proposed
and analyzed using the theory of dynamical systems and integral
and differential equations. Data gathered for the validation of
the models is fitted using standard statistical techniques.
Validation of the simpler initial models is done by taking the
prevalence values of infection of human hosts at two or more
points in time, and estimating prevalence of infection at other
points in time for which data is available.
A collaborative study is undertaken that combines the
theoretical and empirical experience of a parasitologist and the
modeling and theoretical expertise of mathematicians to
investigate models of host-parasite interactions. The scope of
this project is threefold:
*First, to model host-parasite interactions, with
increasingly complex models motivated by biological
considerations;
*second, the study of mathematical properties of each model
and their biological and ecological implications such as
population control or potential species extinction;
*third, the validation of the models through comparison of
model results with field data. This project significantly
advances our knowledge and understanding of the dynamics of
host-parasite systems, by providing usable models to study
natural systems, by analyzing their sensitivity to the parameters
affecting their dynamics, and by allowing the structuring of the
complexities of the systems into hierarchies. A specific example
is the determination of the proportion of cases of
schistosomiasis that need to be treated for the disease to be
eradicated, as well as the effect of drug-induced parasite
mutation and the existence of more than one species of definitive
hosts on the dynamics of transmission of this ailment. Just as
important is the possibility of extending the models developed in
this project to more complex systems involving three or more
species, or stochastic environmental variability.